Self-strengthening Effect in Multilayerd Brittle Materials

9402727 Yang The objective of this research is to study the self-strengthening phenomenon in multilayered brittle materials. These self strengthening mechanisms could have a profound effect on the design and fabrication of brittle materials. To verify the proposed mechanism, the failure of a submicron-thick film sandwiched between two glass slides will be studied. The completion of the proposed study should provide a theoretical model and experimental data base for understanding the nature of constrained failure of brittle films and multilayers. ***